Principals of Uncertainty and Information in Expert Systems

The principal objective of this research is to develop adequate principles for dealing with uncertainty in expert systems. The focus is on four relatively new mathematical theories of uncertainty: possibility theory, fuzzy set theory, random set theory, and the Dempster-Shafer theory of evidence. In each of these theories, as in probability theory, well-justified functions that measure uncertainty are now well established. These functions are crucial for the following three principles of uncertainty to be investigated: principles of maximum uncertainty, minimum uncertainty, and uncertainty invariance. According to the principle of maximum uncertainty, conclusions in any form of ampliative reasoning are determined by maximizing relevant uncertainty function subject to constraints that represent information available. The principle of minimum uncertainty is fundamental to a variety of problems involving unavoidable increase of relevant uncertainty, such as simplification or conflict-resolution problems. According to this principle, solutions are determined by minimizing relevant uncertainty function within constraints representing the requirements of each problem. The principle of uncertainty invariance is concerned with information-preserving transformations between distinct theories of uncertainty. This project is developing mathematical and computational foundation of the three principles as well as investigating their practical role in expert systems.